Engineering Foundation's Eleventh Enzyme Engineering Conference

This conference will highlight scientific as well as engineering aspects of enzyme technology. The program will include sessions devoted to improved biocatalysts through genetic engineering, new biomolecules with enzyme- like properties (for example, catalytic antibodies), applications of enzymes in synthesis, and biocatalyst and bioreactor design.